Identification of the Molecular Basis of Spontaneous Frameshift Mechanisms

9305475 Ripley Fundamental biochemical processes underlying spontaneous frameshift mutagenesis are being investigated. Spontaneous mutations arise from a multiplicity of kinds of errors, whose properties are largely undefined. Among spontaneous frameshift mutations, only a fraction of frameshift sequence changes can be mechanistically described in the most general way; the basis of the remainder is totally unknown, In these unexplained cases, no model connects the mutations to the specific DNA context in which they arise and no dependence on a specific enzyme, metabolic process or DNA damage is yet identified. Low frequencies of spontaneous mutations have led some to think of their patterns of occurrence as random. However, when mechanistic studies have identified underlying causes, mutagenesis specificity has been found to be nonrandom and to directly reflect characteristics of the underlying mutational mechanism. Spontaneous frameshift spectra are complex because multiple mechanisms contribute to the total. The particularly powerful genetics and frameshift detection system of the bacteriophage T4, coupled with complementary in vitro approaches, have been successfully used to separate and characterize distinct frameshift mechanisms. This work is presently incomplete. Identifiable subsets of frameshift specificities have not yet been studied and thus, remain mechanistically unexplained. Previous work has demonstrated that mutagenic specificity can be related to the specificity of the enzymes participating in mutagenesis and /or to non-standard DNA structures associated with particular DNA sequences. This research investigates the enzymology and DNA structures involved in spontaneous frameshift mutagenesis associated preferentially with palindromic DNA sequences. We are examining the molecular basis of frequent frameshift arising spontaneously in vivo, focusing on frameshifts arising at the bases of DNA hairpins. Our attention was drawn to this context by two observation: (1) spontaneous +2 bp and -2bp frameshifts share this context feature, but no other context previously recognized as associated with high frequencies of frameshift, and (2) the serendipitous discovery of a new hotspot for 2bp duplications associated with a local context change which produced a hairpin. We will use DNA sequence manipulation to confirm the relationship between frameshift hotspots and their hairpin contexts. We will also use frameshift mutagenesis in the hotspots as a specific assay for identifying the enzyme(s) involved in this type of spontaneous mutagenesis. If a clear association of frameshift hotpots with DNA hairpins is demonstrated a major hypothesis to be tested is whether the frameshift specificity in vivo arises because the DNA hairpin stems, analogues of DNA recombination intermediates, serve as substrates for misprocessing by the T-4encoded Holliday-junction resolvase in a manner that leads to frameshifts. %%% This research will contribute to our understanding of how mutations occurs in the absence of agents known to damage DNA. ***